U.S.Italy Cooperative Research: Stereocontrolled Reactions of Oxiranes-Fundamental Aspects and Applications

This award will support Professor Lee Flippin of the San Francisco State University in collaborative research with Professor Franco Macchia of the University of Pisa, Italy. Stereochemical control over carbon-carbon bond forming processes remains one of the outstanding challenges in modern synthetic organic chemistry. The addition reactions of oxiranes are especially promising candidates for the development of new methods for carbon framework construction because they offer the potential of establishing multiple chiral centers per single skeletal elaboration step. The researchers intend to pursue three main objectives: 1) to develop novel methods for the electrophile-promoted addition of carbon-nucleophiles to oxiranes; 2) to define the scope and potential synthetic utility of these methods; and 3) to develop a concise synthetic approach that should be useful in the total synthesis of selected cyclodepsipeptide antibiotics. The proposed work is mutually beneficial with the Italian side contributing a more mechanistic viewpoint while the U.S. side provides the synthetic approach. Recent work by the collaborators has provided some very encouraging results. Application to a medically useful class of compounds is one of the potential benefits from the project.